Modeling Relaxation Dynamics of Confined Fluids: From Capillary Transitions to Nanoscale Separations

Intellectual Merit. This nano-related proposal requests support for development and application of a unified
theoretical approach to the thermodynamics and dynamics for fluids confined in porous
materials. This unified modeling framework is expected to have major impact upon the materials
science and engineering of new porous materials and their use is many applications, ranging
from catalysis, adsorption and membrane separations, to low-k dielectrics in microelectronics, to
sensors and diagnostics in biotechnology. The theory being developed, dynamic mean field
theory (DMFT), is fully consistent with the thermodynamics of confined fluids as described by
classical density functional theory (DFT). With DMFT one can take a model porous material in
contact with a bulk fluid and investigate the response of system to step changes in the bulk
state (chemical potential or pressure). The system evolves to a final state in which the density
distribution is also a solution of DFT for the system. The theory can describe
adsorption/desorption dynamics for complex pore network structures, including the nucleation
mechanisms for pore condensation and evaporation, as well as the dynamics of cavitation or
pore blocking. The theory can also be applied to mixtures, to study phenomena such as the
dynamics of capillary condensation of mixtures or the dynamics of the displacement of one
species in a porous material by another. The research project has the potential to be a
transformative contribution to the modeling of fluids confined in porous materials.
There are three components to the project: i) DMFT for fluids in pore networks. We will study
the mechanism for pore condensation/evaporation as well as cavitation for fluids in pore
networks We will also study partial wetting and partial drying systems with applications to
condensation of water in carbon materials and to mercury porosimetry; ii) DMFT for fluid
mixtures. We will study pore condensation of binary mixtures, including the effect of pore
network structures and nonideality in the mixtures. We will also consider dynamics of
displacement processes such as in enhanced coalbed recovery of methane; iii) Further
theoretical development and assessment of DMFT. The investigators will test the accuracy of DMFT through
comparison with non-equilibrium molecular dynamics and Kawasaki dynamics simulations. The investigators
will also investigate the origin of symmetry breaking in the dynamics of nucleation processes.
They will study the explicit inclusion of fluctuations in DMFT and will also consider the utility of
higher order approximations.

Broader Impacts. While the research proposed here is fundamental in nature the potential
impact upon applications of porous materials is significant and affects many technologies. There is an enormous worldwide
effort on the materials science and engineering of new porous materials and DMFT provides a
new approach to understanding the dynamical behavior of fluids confined in such systems that
is consistent with the thermodynamic treatment from DFT. The research is transformative
because it provides an approach to modeling confined fluids properties that treats
thermodynamics and relaxation dynamics in a unified context. The research will help bridge two
research communities in the area of confined fluid properties, one focused on adsorption
isotherm measurements and thermodynamics and the other focused on transport phenomena.
..
The project includes significant education and outreach programs including creating
undergraduate research opportunities, including REU for students from community and four year
state colleges and enhancing the involvement of young researchers in international
conferences the PI is organizing. The project also includes collaboration with industry
(Quantachrome) and international collaboration (University of Leipzig).